Developing a Computer Lab for the Technology Enhanced Teaching of Undergraduate Statistics at the University of California, Irvine

9452622 Treas This project supports an undergraduate computer laboratory that is used in conjunction with specially-equipped classrooms. The facility focuses on technology-enhanced undergraduate instruction in required lower-division statistics courses. Computer workstations with supporting servers, linkages, and printers are used, and the project implements three principal curricular components. These include computer-assisted instructional drills on basic statistical concepts, spreadsheet calculation exercises, and student statistical analyses of data archives. These curricular developments are tested in several sections of the required three-quarter statistics sequence. The project serves over 1200 undergraduates each quarter, provides a first-course in quantitative reasoning, and includes a significant number of students traditionally under representative in science.